Student Travel Support for the Sept 2012 North American Power Symposium, to be held on the campus of the University of Illinois at Urbana-Champaign,

This proposal requests support for student travel to the 44th North American Power Symposium (NAPS) conference held at University of Illinois at Urbana Champaign in September 2012.